NSF/CERF Workshop to Increase Collaboration Between Universities and the Design and Construction Industry; October 20, 1997; Arlington, VA

9727001 Kirksey The primary objectives of the workshop are to discuss the importance of R&D within the design and construction industry; to inform industry of the variety of NSF programs that can be used as a basis for collaboration; and to present promising late-stage NSF-funded research to industry representatives. The workshop will result in an increased awareness of the strategic importance of R&D within the design and construction industry; specific industry recommendations on how to commercialize, or at least collaborate on, promising NSF-funded research; recommended actions to be taken to reduce R&D barriers within the design and construction dialogue that would result in more industry/university collaborations. ***